An Optical Study of DC and AC Induced Breakdown in Dielectric Liquids (REU Supplement)

This project will study the electrical breakdown of dielectric liquids under continuous stress. The conditions leading to this breakdown is not well understood and breakdown is usually characterized today according to impulse testing. Although impulse testing is important, this breakdown mechanism is known to be different from that under continuous stress, which is the more common condition. High speed photography of breakdown streamers synchronized with current conduction measurements will be used for the first time to understand this pre-breakdown condition.